Special Projects: Mathematical Sciences Methods for the Study of Deliberate Releases of Biological Agents and their Consequences

EIA-0209761
Roberts, Fred S
Rutgers University

Special Projects: Mathematical Sciences Methods for the Study of Deliberate Release of Biological Agents and their Consequences

This effort will fund an interdisciplinary workshop to investigate the potential uses of methods of the mathematical sciences (math, computer sciences, statistics, operations research) to fight bioterrorism. The group will identify the challenges posed by bioterrorism, will identify potential uses of mathematical sciences methods to fight it, then will focus on specific areas of emphasis.

The group will examine alternative preventative measures such as vaccination, vaccine dilution and antibiotic and vaccine stockpiling or responsive strategies such as the isolation of individuals, buildings, populations and regions, the rapid control of mass transportation systems, and the systematic surveillance of the food and water supply. Topics of interest will include multiple outbreaks, the impact of bioterriorism on agricultural systems and food supply, and the spread of pathogens through buildings, in water systems, and in communications systems.